AMP

HRD-9702034 Howell Through committed leadership and an innovative use of resources, The South Carolina Alliance for Minority Participation (SCAMP) has been effective in increasing the participation of underrepresented students in science, mathematics, engineering and technology (SMET) fields. An underrepresented level of collaboration among Alliance partners has fostered the development of new outcomes that have increased student success as demonstrated by the gains in enrollments and degrees awarded since the project's inception. Support from the business sector, State Government and other strategic partnerships have made SMET education a reality for all students. Building on foundation of the first phase of NSF funding, SCAMP will achieve greater success through expansion of its programs and activities to include greater numbers of participants. An increased emphasis on two-year transfers and transition to graduate school will be featured in Phase II. The curriculum reform efforts will be extended to a new target disciplines such as chemistry, physics, and computer science. Linkages with business and industry will be expanded to sustain success beyond the Phase II funding period. The high level of cost-sharing in Phase II represents the strong commitment by institutional leaders. New legislation and policies that call for increased accountability for student success and performance will foster greater institutionalization of SCAMP programs and activities and will create new opportunities for involvement from all sectors.